3D Coherency of the Barbados Seismic Data Volume: Improved Imaging of Faults and Fluid Conduits

9618166 Moore Fluid-rock interactions and associated tectonic- hydrologic processes exert fundamental controls on crustal evolution. Accretionary prisms incorporate fluid-rich sediments at high strain rates, providing natural laboratories where tectonic and hydrologic processes are accessible to drilling, quality seismic imaging and monitoring. Evaluation of tectonic and hydrologic processes here provides models for deeper level phenomena in both active tectonic belts and more quiescent sedimentary basins. Faults are conspicuous fluid migration conduits of the northern Barbados accretionary prism. Fluids migrating along faults are deeply sourced, alter sediments that they contact, and mediate structural processes. A recently collected 3D seismic data volume in this area clearly images the plate boundary detachment or decollement fault and related thrust splays. As a follow-on effort to previous work on this Barbados 3D seismic volume, we propose application of seismic coherency analysis to the data, a revolutionary post-stack processing technique. We propose to investigate the coherency signature of the decollement surface, the boundaries between reflection polarities along this surface and any coherency anomalies within areas of like reflection polarity. These analyses will be carried out at AmocoOs Technology Center in Tulsa Oklahoma, where this processing technique was developed. ***